Collaborative Research: CSR--AES: Energy Management in Real-time, Multi-tier Internet Services

Abstract:

This project develops energy management techniques for large-scale,
multi-tier data-centers, using formal optimization methods that do not
compromise performance requirements. High-performance Internet
services are often functionally decomposed into a pipeline of
multiple, semi-independent tiers spanning multiple machines. These in
turn might consist of a heterogeneous mix of system generations, due
to phased upgrades. Power delivery and cooling costs constitute a
significant part of total cost of ownership.

The expected workload of such a system is aperiodic, with highly
varying execution demand and possibly significant I/O activity. This
represents an opportunity for major energy savings, but only if
performance guarantees can be maintained. Scalability also requires
that local power management decisions must yield globally optimal
energy consumption. Although effective power management policies have
been devised for simpler architectures, no straightforward extensions
exist to make them applicable to multi-tier clusters while preserving
response-time guarantees.

Results will be disseminated at leading conferences and the software
will also be publicly available on the Internet for use by the
research community in further research, or by the industry as a basis
for possible product development. Moreover, from a global societal
perspective, successful energy management helps save natural
resources, while reduced service-provider costs foster economic growth
and IT innovation. Finally, this research will help train graduate
and undergraduate students.